REU: Summer Undergraduate Research Program

This is a Research Experiences for Undergraduates project. It will provide research experiences for ten students at the Medical University of South Carolina. Students will participate in projects involving biochemistry, molecular biology, cell biology, biomathematics and biophysics.